U.S.-German Cooperative Research to Study Ultrasonic Measurements of Fatigue Damage

0089548
Turner
This award supports Joseph Turner and students from the University of Nebraska-Lincoln in a collaboration with Walter Arnold of the Fraunhofer Institute for Nondestructive Testing in Saarbruecken, Germany. The project will focus on the relation between ultrasonic absorption and scattering and fatigue damage. Two new techniques will be investigated, one developed by Arnold, and the other by Turner, will be used to analyze identical specimens. The collaboration will make possible an exchange of techniques which make use of the complementary expertise available from the German and U.S. groups, thereby leading to new techniques for measuring and monitoring fatigue damage of structural components used in building and manufacturing. Exchange of junior researchers is emphasized to add an international dimension to their training and to allow them to establish international connections early in their careers.